Transaction Processing Using Large Memories

Technological and economic changes are making it practical to configure computer systems with larger and larger main memories. The availability of large memories will affect the design of applications running on these systems. This project focuses on one common and important application, namely transaction processing systems. A preliminary version of System M, a testbed transaction processing system designed from scratch for a large memory environment has been implemented. Currently, System M assumes that a complete copy of the database resides in volatile main memory. This assumption will be modified and System M enhanced to take advantage of the complete storage environment that can be expected for future transaction processing systems. This environment will include large amounts of main memory, non-volatile main memory, and slower non-volatile media such as magnetic and optical disks. The techniques envisioned for System M are intended to maximize the system's performance (given a particular storage environment) by dynamically placing data on storage media appropriate to their use. System M will be used to demonstrate empirically the usefulness of these techniques. In addition, System M will be useful for empirical studies of other aspects of transaction processing (e.g., concurrency controls) on large memories, and as a tool for validation of performance models.